I-Corps: Idealized Electrodes on Organic Semiconductors

The broader impact/commercial potential of this I-Corps project is to develop a low-cost organic light emitting diode (OLED). The improved economics of this OLED could bring this lighting closer to the price point required to be competitive in high-efficiency commercial lighting or in low-cost displays, such as monitors and calculators. Reduced cost in existing OLED products (phones, TVs) will also prove a significant boon for users.

This I-Corps project is based on the premise that inefficient interfaces between materials within the OLED stack are a significant source of performance loss. As a result, excess materials must be used (or expensive work arounds must be applied) to maintain an acceptable performance, but at a higher cost. The suitability of alternative technologies to improve interfacial issues in an industrial relevant manner is evaluated.